I-Corps: Electronic Grip Gauge

The broader impact/commercial potential of this I-Corps project is the development of a device to assess and rehabilitate fine sensorimotor hand function. After a neuromuscular injury, patients often struggle with handling and manipulating fragile objects due to motor and sensory deficits of the hand. While existing occupational-therapy and physical-therapy devices focus primarily on gross upper-limb function, this project introduces a device capable of monitoring fine sensorimotor function of the hand, as would be used when gently grabbing a fragile object. The device is simple, portable, and inexpensive, allowing it to be seamlessly integrated into inpatient rehabilitation, outpatient rehabilitation, skilled nursing facilities, and home-health workflows. The occupational and physical therapy market is expected to grow from $53.08 billion in 2023 to $92.38 billion by 2030 as the US population ages and the prevalence of neuromuscular injuries increases. Stroke is the leading cause of disability in the US, and this project offers a solution to assess and rehabilitate the fine sensorimotor function of stroke survivors.

This I-Corps project is based on the development of a handheld device with embedded sensors and artificial intelligence to quantify fine sensorimotor hand function. Patients can use this device to simulate gently grasping a fragile object without breaking it. The embedded sensors allow for automated assessments and rehabilitation sessions, thereby reducing the demand on therapists. Task difficulty can also be automatically updated in real-time to maximize patient engagement and clinical outcomes. Quantitative health metrics are calculated and displayed in real-time to improve diagnostic accuracy and interrater reliability. The integration of these features into a simple, inexpensive and miniature formfactor offers a practical device for assessing and rehabilitating fine sensorimotor hand function.